Student and Junior Faculty Travel Support for Engineering Sustainability 2013: Innovation and the Triple Bottom Line, Pittsburgh, PA, April 7-9, 2013

1264015 (Beckman). Engineering Sustainability 2013 will bring together engineers and scientists from academia, government, industry, and non-profits to share results of cutting edge research and practice directed at development of environmentally sustainable buildings and infrastructure, especially urban water infrastructure. The conference is unique in its focus on environmentally sustainable engineering for the urban environment, and its ability to bring together engineers, architects, economists, and urban planners and managers. Plenary presentations and concurrent oral and poster sessions will be organized around the following themes: green building design and construction; greening the indoor environment; sustainable distributed power for the built environment; sustainable urban drinking water, stormwater, and wastewater infrastructure; design of more sustainable transportation grids; using principles of sustainability to foster innovation and new product development. There will also be numerous planned opportunities for informal exchanges and networking. The interdisciplinary presentations on cutting edge research in sustainable engineering for the built environment and infrastructure, the mixture of disciplines and backgrounds represented among the participants, and the networking opportunities provided by the conference will enable participants to leave the conference with new information and ideas about research needs and opportunities. This will strengthen the ability of the participants to develop novel and impactful proposals to organizations funding research in sustainability science and engineering. The conference will further the public interest in sustainable community infrastructure by advancing the state of scientific knowledge of issues affecting human health and the environment. This conference will also enhance interdisciplinary dialogue on environmental sustainability research with cross-cutting applications in basic and applied sciences and engineering.